Complex Hyperbolic Geometry, Arithmetic, and Commutative Algebra

The principal investigators study the complex hyperbolic
geometry of the moduli spaces of cubic surfaces and cubic
threefolds. For stable cubic surfaces over the complex numbers,
previous work of D. Allcock and the investigators gives a period
map from the moduli space to the quotient of the four-ball by a
lattice defined over the Eisenstein integers, which is an
isomorphism between these two spaces and which takes the subspace
of moduli of singular surfaces to a configuration of hyperplanes
in the ball. The investigators now study the arithmetic
properties of cubic surfaces whose periods are Eisenstein rational
points. For stable cubic threefolds over the complex numbers,
there is a period map from their moduli space to the quotient of
the ten-ball by a lattice also defined over the Eisenstein
integers. The investigators study detailed properties of this
period map in order to prove that this map is an isomorphism
between the two spaces (after some blowing up and down) which
carries the subspace of moduli of singular threefolds to a
hyperplane configuration in the ball. The main technical point
under study is the computation of the differential of the
restriction of the period map to each stratum that parametrizes
equisingular varieties. The extension of the Griffiths residue
calculus to this situation turns out to be quite involved and to
require new techniques in commutative algebra.

The understanding of cubic equations has been a central theme in
mathematics, whith deep implications for mathematics, science and
engineering. In the sixteenth century cubic equations in one
variable were solved by finding a formula for its solutions
analogous to the well-known formula for the solutions of quadratic
equations. This formula led to the introduction of complex
numbers, which are now a standard tool in science and engineering.
In the eighteenth and nineteenth centuries it was realized that
quadratic equations in any number of variables could be
understood, and that, for a fixed number of variables, all
quadratic equations are essentially equivalent by a change of
variables. It was also realized that cubic equations in two or
more variables are not all equivalent by change of variables.
The different equivalence classes are now called the moduli space.
The moduli space of cubic equations in two variables is the
hyperbolic plane of non-Euclidean geometry. This connection has led to many
discoveries, from special functions used to solve problems in physics and
engineering, to advances in number theory and cryptography. The aim of this
project is to study the special non-Euclidean geometry that has recently been
discovered on the moduli spaces of cubic equations in three and four
variables. The reason for carrying this study is not only the solution of
the problems posed in the proposal, but also the expectation that this study
of cubics in more variables will continue to be a point of departure for new
ideas that will affect other areas of mathematics, science and engineering.